PRF: An Empirical Test of Energetic Compromise at the Whole Organism Level

The objective of this research is to evaluate the energetics of an inducible chemical defense in an insect. The species that will be used, Diploptera punctata (a Pacific Island cockroach), is known to synthesize and store a mixture of quinones which it sprays at predators. It has recently been shown that this chemical defense is under endogenous control. Therefore, it is possible to obtain individuals with and without defensive quinones. How the total energy budget of a polymorphic organism is affected under different expressions of the trait will be determined. Of particular interest is a test of energetic compromise: the idea that because organisms operate under limited energy budgets, an elaboration or hypertrophy in one part must be accompanied by a reduction elsewhere. The total energy budgets for defended and undefended cockroaches in two different feeding regimes will be estimated by oxygen consumption measurements. Size and fecundity will be measured to assess a possible reallocation of energy between growth or reproduction and chemical defense. The results will show whether reallocation of energy occurs within a fixed energy budget or whether the total energy budget is increased to accommodate the costs of an induced chemical defense. The project will be supported by funds provided for a one-year postdoctoral research fellowship to Dr. Catherine Loudon, who will conduct the studies at Cornell University.